Distributed Algorithms for Mobile Ad Hoc Networks

Proposal Number: CCR-9972235
PI: Jennifer Welch
co-PI: Nitin Vaidya

In a mobile ad hoc network, nodes communicate solely via a wireless
medium, without any infrastructure such as base stations. The
topology graph of such a network connects two nodes that are within
each other's communication range. The topology can change whenever a
node moves. Such networks are useful for disaster recovery,
search-and-rescue in remote areas, and military operations. The
proposed research will develop efficient distributed primitives for
mobile ad hoc networks, to perform mutual exclusion, group
communication, and leader election. Existing algorithms for these
problems do not take into account all characteristics of ad hoc
networks, such as highly dynamic topology, constraints on energy
consumption, and variable transmission error rates. The proposed
research will involve characterization of appropriate performance
metrics for evaluating algorithms on ad hoc networks, such as energy
consumption and impact of node mobility; design of efficient
distributed algorithms for mutual exclusion, leader election, and
group communication; performance evaluation of distributed algorithms
for ad hoc networks, based on simulations and analytical techniques;
proof-of-concept prototype implementation of a distributed blackboard
on a small ad hoc network consisting of wireless laptops.